Travel Grant for U.S. Delegation to the Third International Symposium on Non-Metallic (FRP) Reinforcement for Concrete Structures

9617293 Bank Travel award supports twelve (12) delegates from the United States to attend the Third International Symposium on Non- metallic (FRP) Reinforcement for Concrete Structures to be held in Sapporo, Japan, 14-16 October 1997. ***